Bill NYE The Science Guy

This is a pilot for a half-hour, weekly children's science education series produced for broadcast on PBS by McKenna/Gottlied Productions, Inc. and KCTS Television in Seattle, Washington. One half-hour program and prototype ancillary material will be produced and tested with children, parents, and teachers. The series is designed to make science accessible and interesting to children ages 9 to 12 by relating science to their interests and everyday activities and by presenting basic concepts from elementary science curricula in a humorous and exciting format. The host is Bill Nye, a popular television entertainer and science aficionado. In each program, Nye is assisted by children, well-known science experts, and celebrity guests. Experiments and demonstrations will use inexpensive, safe household items to enable viewers to follow along at home or in the classroom. Ancillary material will consist of a parent's guide to assist parents in encouraging their children to participate in science activities and develop problem-solving skills, activity cards for children to encourage self-directed learning, and a teacher's guide to support classroom use.